EAGER: INFORMATE: Improving networks for organizational repositories through metadata augmentation, transformation and evolution

This project seeks to analyze the interaction of many components of the scientific communication ecosystem, characterized for purposes of this project as the Global Research Infrastructure (GRI). Core questions for analysis include how the scientific field measures the impact and benefits of research funding in the U.S. This is a challenging task, requiring careful analysis and characterization of data and tools for collecting and presenting it, and understanding the breadth and capabilities of the entire infrastructure. Several key aggregate data repositories will be utilized for this early concept research, notably centering on the CHORUS alliance of scientific publishing information. CHORUS provides analysis ready extracts from the GRI, and currently acts as an interface between publishers and 12 federal agencies, providing a proxy for the broader infrastructure. The project will 1) characterize available CHORUS data, focusing on sources and connections, 2) determine connectivity for funder and researcher identifiers and organization affiliations, 3) search for and find currently missing identifiers for organizations, 4) discover collaborations across funders, organizations, and datasets in journal article metadata, and 5) compare CHORUS and agency repository content to understand the contributions and limitations of both sets. This project will help federal agencies understand the capabilities of the Global Research Infrastructure and jump start understanding of new metadata sources and impact assessment.